Molecular Transport Across the Eye

9707512 Edwards The goal of the proposal research is to investigate molecular transport across the major transport barriers of the eye. Despite the importance of sight, a fundamental understanding of transport in the eye is still lacking. A mathematical model without fitted parameters will be developed to predict solute transport rates across the cornea and the sclera given the physiochemical properties of the compounds. The model will be vased on the real ultrastructure of each barrier, and will relate the geometrical parameters and chemical composition of each tissue to its macroscopic measurable transport properties. The importance of understanding molecular transport in the eye is several fold. The natural function of the eye, like all organs of the body, is directly related to the transport of water, solute, and ionic species. For instance, glucose is required by the corneal epithelium for energy production, and it reaches the cells by diffusion from the aqueous humor. Another example is that of keratocyte migration to the wound site following stomal injury, possibly under the attraction of an electrical field. Characterization of the structure and function of the eye is often made by measuring transport properties such as diffusivity, permeability and electrical conductivity. A quantitative understanding of transport in the eye can aid in the interpretation of these data. The ability to predict transport rates also has direct application to eye drug delivery. The principal aims of the model are: 1) to predict the water and solute permeability of the cornea and the sclera as a function of hydration, collagen and proteoglycan content, fibril distribution, and the size and partition coefficient of the solute; 2) to determine the electrical resistance properties of the two barriers; and 3) to simulate transient transport of nutrients in the cornea. ***